SBIR Phase II: Nanoparticulate Based Coating Approach for Making Thin Film Batteries

This Small Business Innovation Research Phase II project will further develop unique materials demonstrated with potential to provide higher performance nanostructured cathodes for a solid state lithium ion thin film battery using a lower cost, nanoparticulate based deposition approach. A unique nanocomposite anode consisting Sn nanoparticles deposited onto CNT has been developed, with capacities higher than typically found in conventional Li ion batteries The cathode work will be directed toward development of improved cathode coatings.

The potential to cost-effectively eliminate the primary limitation to portable electronic advances will have a significant impact on industry and society. Lighter weight, more powerful and permanently rechargeable solid state devices that enable a new portable power "platform" will be an outcome of this endeavor. In addition, the nature of the solid-state design and materials is inherently disposable and environmentally friendly.